Strike-Parallel Variations in Clay Mineraology and Their Impact on the Cascadia Seismogenic Zone

The objective of the study is to understand the basic and critical input parameter for the mechanics of subduction zone decollements, the quantitative effect of smectite input. The PI will carry out a study of the DSDP/ODP drilling samples to determine their clay mineralogy and how it influences seismic behavior and slip stability. The focus will be on samples from the Cascadia margin, but the results will be compared to and relevant to other seismogenic zones as well.